U.S -Morocco Cooperative Research on the Origin, Paleoclimatic Relationship, and Diagenesis of Quaternary Moroccan Travertines

9311952 Chafetz Technical Narrative: This project represents a collaborative research effort between the University of Houston and the University of Fes, Morocco. The project will focus on newly discovered travertine deposits in Morocco. Travertine is a limestone that forms at the surface from spring waters due to biotic and abiotic processes. The investigators (Drs. H. Chafetz from the University of Houston and B. Akdim from the University of Fes) will conduct field and laboratory work to determine whether these newly discovered but as yet unstudied travertine deposits display multiple episodes of formation and whether they are cold or hot water deposits. By answering these questions, Chafetz and Akdim will evaluate paleoclimatic conditions as well as provide valuable insights into the origin and diagenesis of travertines. Project funding will enable the researchers to jointly conduct fieldwork and to visit each other's laboratory over the course of this three-year study. This project in geology and paleontology fulfills the program objective of advancing scientific knowledge by enabling leading experts in the United States and Morocco to combine complementary talents and conduct research in areas of strong mutual interest and competence. ***